Structure and Function of the Dbl Homology Domain of Human Beta-PIX, a Guanine Nucleotide Exchange Factor for the Rho GTPases

Rosen
MCB 9817376

1. Technical

GTPases in the Rho family regulate cytoskeletal structure,
adhesion, motility, and gene expression in cells. A key unresolved issue
in Rho-family signaling is how the GTPases are activated by upstream
guanine nucleotide exchange factors (GEFs) in the Dbl-family. This
proposal describes structural and functional analysis of a recently
discovered Dbl-family GEF, human PIXB (hPIXB). Initial stages of the work
will focus on structure determination of the Dbl-homology (DH) domain of
hPIXB by NMR spectroscopy. The large size and poor aliphatic chemical
shift dispersion of the domain will necessitate use of selective methyl
group and aromatic labeling strategies to obtain sidechain chemical shift
assignments and a global fold of the domain. The work will represent the
first application of these strategies to a protein of unknown fold, and as
such will provide a critical test of their utility in structure
determination of larger proteins by NMR. The structure will facilitate
amino acid sequence analyses across the Dbl family, providing important
clues regarding mechanisms of catalysis and GTPase recognition by DH
domains. The structure, along with NMR mapping of the GTPase interface,
will then guide mutagenesis experiments to identify the roles of specific
amino acids in mediating GEF catalysis. Comparisons with structural and
functional data on other GEF domains will then reveal general principles of
nucleotide exchange catalysis. Finally, the role of the plekstrin homology
(PH) domain, found immediately C-terminal to all DH domains, in regulating
GTPase binding and GEF activity will be examined biochemically and
spectroscopically. The results will explain whether the hPIXB PH domain
functions simply as a membrane-targeting sequence or as an allosteric
regulator of DH domain GEF activity. This information will have
implications regarding the regulation of DH proteins and mechanisms of
GTPase activation in the cell.

2. Non-technical

The Rho GTPases represent an important class of proteins that
transmit signals controlling cell shape, adhesion and movement. These
molecules cycle between an inactive GDP-bound state and an active GTP-bound
state. When complexed with GTP, but not GDP, they have strong affinity for
selected target proteins, and binding to these molecules constitutes
transmission of information within the cell. Guanine nucleotide exchange
factors (GEFs) in the Dbl family are enzymes that catalyze release of GDP
and rebinding of GTP, thus serving to increase the cellular population of
activated Rho proteins. This study focuses on understanding the molecular
mechanisms of Dbl protein activity toward the Rho GTPases. Initial work
deals with determination of the three-dimensional structure of one Dbl
family member, hPIXB, using nuclear magnetic resonance spectroscopy (NMR).
In addition to providing important functional information, these studies
will also provide a platform for development of new strategies for
structure determination by NMR. This work will be followed by biochemical
studies of hPIXB mutants that will enable identification of individual
amino acids in the protein that are important for activity. Finally, there
is evidence that the activities of the Dbl proteins may be regulated in an
intramolecular fashion through interactions of the catalytic domain with an
adjacent regulatory module. Spectroscopic and biochemical assays will be
sued to probe the nature and function of this interaction. Together, these
studies will explain many of the biochemical and structural mechanisms used
to regulate the level of activated Rho family GTPases in the cell.